Student Travel Program: To be Held in San Diego, California,in December, l997.

ECS-9725016 Michel This project seeks to sponsor engineering students an IEEE Control Systems Society Meeting, the 1997 IEEE Conference on Decision and Control (CDC'97). The goal is to develop an opportunity for students to be informed about the most recent advances in Control Systems. Opportunities for student attendance will be advertised nationwide and women, minorities and disabled students will be especially encouraged to apply for sponsorship.